Conference Meeting on December 27-30, 1991--Atlanta, GA Strategies for Analyzing Neuropeptide Systems

This award is to provide some travel support for the participants of symposium entitled "Strategies for Analyzing Neuropeptide Systems" to be held at the annual meeting of American Society of Zoologists, December 27th to 30th, 1991, in Atlanta, Georgia. The focus of the symposium is on cellular and molecular approaches associated with neuropeptide systems. The aim is to provide a broad comparative scope and stress the applications of these valuable techniques for the specific needs of the diverse audience that attends this meeting. A roundtable discussion following the presentations will be used to evaluate and integrate the research strategies presented by the speakers. The participants represent a group of young investigators who are directly active in the research and are establishing their own outstanding careers in this rapidly advancing area of neurobiology. The proceedings of the symposium will be published in the American Zoologist and, thus, accessible to scientists that did not attend this meeting but would benefit from a review of the state-of-the-art approaches and techniques available to tackle important biological problems. Finally, this symposium will be used to test the feasibility of forming a multidisciplinary division of neuroscience within the American Society of Zoologists.